Seismic Response of Equipment in Structures Supported on Resilient-Friction Base Isolators

The objective of this project is to study the applicability of resilient-friction isolator devices in protecting equipment, machines, and components attached to the building or superstructure. Different equipment-superstructure models will be considered including continuous as well as multi-degree of freedom discrete systems. Dynamic response analysis as well as statistical studies of the response will be performed. The high frequency effects of the slip-stop friction mechanism will be investigated. The study will determine the viability of the resilient base isolation for internal equipment protection against seismically induced motion of the primary structure.